SNNnow: Probabilistic Learning for Deep Spiking Neural Networks: Foundations and Hardware Co-Optimization

Overview: Deep neural networks (DNN) have become the de-facto standard tool to carry out complex learning
tasks. DNNs belong to the second generation of artificial neural networks (ANNs), which rely on neurons
that implement memory-less non-linear transformations of the synaptic inputs. Motivated by the biological
analogy with the behavior of neurons in the brain, the third generation of neural networks, also referred to
as Spiking Neural Networks (SNNs), was introduced in the nineties. In SNNs, synaptic input and neuronal
output signals are spike trains. This proposal argues that the time for the use of SNNs as machine learning
tools has come, and sets forth a systematic approach for the design and implementation of SNNs as learning
and inference machines.

Intellectual merit: SNNs have a number of unique advantages as compared to ANNs: (i) They are event-based
systems with natural sparsity properties, which have the potential to make deep learning machines feasible for
energy-limited devices; (ii) They are uniquely capable to natively process data that comes in the form of timeencoded
processes, for example, from bio-inspired sensors. The main goal of this project is the establishment
of a theoretical framework to enable the design of flexible spike-domain learning algorithms that are tailored
to the solution of supervised and unsupervised cognitive tasks, as well as their co-optimization on nanoscale
hardware architectures. To this end, this project puts forth a principled probabilistic framework based on the
graphical formalism of Directed Information Graphs.

Broader impact: The outcome of this research is expected to have a profound impact on the increasing number
of practical applications that are based on the processing of time-encoded signals, including biological sensors
and next-generation communication systems, and/or that require the adoption of computing solutions with a
significantly smaller power budget as compared to conventional DNNs. The research methodology is based
on a multi-disciplinary approach that integrates machine learning, information theory, probabilistic graphical
models, neuromorphic computing and device/system architecture at the nanoscale. The educational plan at
the home institution targets both undergraduate and graduate students via hands-on learning and experimentation
activities.